Investigating Nonlinear Dynamics with Topological Methods

The project is an investigation of the interplay of topology and
nonlinear dynamics from both applied and theoretical viewpoints. Complicated
topology arises naturally in nonlinear dynamical systems and frequently
"carries" the dynamics of the system. Understanding this topology is
essential to understanding the dynamics and the long-term behavior of the
system. Planned are (i) further theoretical study of the topology present
in "most" (i.e., generic) dynamical systems with a given property, (ii)
applied study of stirring and turbulence (with chemical engineers at
Rutgers), (iii) theoretical and applied study of area-preserving systems,
(iv) an investigation of how topology and invariant measures are
related in one-dimesional dynamical systems, and (v) further study of
topological horseshoes (with J. A. Yorke and others from the Maryland
group). The project builds on work already done by the investigator both
alone and in collaboration with other mathematicians and scientists. The
tools of both topology and dynamical systems are needed and will be used
to carry out the project. Theoretical results concerning stirring will be
backed up by actual experiment and observation in the lab.

Whenever a nonlinear dynamical system, such as the weather, or the
motion of different fluids as they are stirred, or the solar system, is
"operating", interesting topology arises as sets are mapped back across
themselves. Understanding these sets is crucial to understanding the
complicated behavior of nonlinear systems. Sometimes the complicated
topology can be observed as it forms, and is a marker for certain kinds
of complicated dynamics. Can this be made precise? Can it be "quantified"?
Consider stirring, a phenomenon of special interest to the investigator,
for example. Stirring occurs in every kitchen, and seems to be a simple
process. But this is far from the case: Stirring occurs in industrial
settings and in nature in many different contexts as chemicals or
medicines, or hot and cold air, or hot and cold water, are mixed. Most
often in industry achieving homogeneity of the mixed substance efficiently
is the goal. Experimental and simulated results by chemical engineers
demonstrate that those processes used today do not result in homogeneity.
How can those processes be improved? That is one of the problems to which
the results of this project should be applicable. More generally, the
project planned is a study of the topology of complicated dynamical
systems, and both the implications of the presence of complicated topology
for nonlinear systems and vice versa.